Improving Science and Mathematic Education through Integrated Content and Interactive Discovery Learning

This is a project to develop an integrated introductory course in undergraduate science and mathematics by a team of faculty and professional staff in science, mathematics and psychology representing three of our four major campuses of Florida Community College at Jacksonville. The work is integral to the College's long range plan to revitalize the curriculum and make learning an exciting and rewarding process. The goals are to increase understanding and retention of complex subject matter, while at the same time make these enjoyable experiences, leading to the adoption of life-long learning habits by students. Teaching faculty have teamed with psychologists versed in applications of learning and motivation theory to the classroom as well as in the application of technology to the learning process. The faculty team will develop an introductory level undergraduate course combining the central themes of cycles, information, and change common across scientific disciplines including botany, microbiology, chemistry, physics, and mathematics. The developers will team teach the course using strategies that integrate science and mathematics and focus on the interrelationships among the sciences and mathematics. The course will be delivered in electronic classrooms that allow team teaching via telecommunications systems providing graphic, audio and visual interaction between faculty and students located on both the North and Downtown Campuses. The course will engage student in learning by discovery exploration and collaborative partnerships between students and faculty and administrators acting as mentors to student teams.